Future Directions in Probability Theory

A workshop on the future directions of probability will be held in Arlington, Virginia, May 29-31, 2002. The purpose of the workshop is to discuss the future of probability, both as a discipline and as a component of research in other areas of science and engineering. Participants in the workshop will include prominent researchers in probability theory, as well as researchers at the boundaries of probability with other areas. A general interest paper is expected to be generated by the workshop participants and disseminated widely.